SBIR Phase I: Niobium Silicide Intermetallics Castings for the Next Generation of Very High Temperature Applications

0128423
Chen

This Small Business Innovation Research (SBIR) Phase I project will test the feasibility of a new production technology for affordable near-net shape components of a class of advanced refractory metal intermetallic composites. Niobium (Nb)-based intermetallics will permit a revolutionary increase in operating temperatures for many very high temperature applications. Phase I will employ an innovative reactive metal investment casting method to create a cost-effective and robust process for manufacturing complex shapes. Phase II would explore strategies for producing actual components.

Anticipated commercial applications are those at very high temperatures, such as turbine airfoils now made of single crystal nickel-based superalloys. Unprecedented levels of fuel efficiency and thrust-to-weight ratio are expected for future aircraft systems.